Vortex Dynamics in Superconductors

It is proposed to systematically explore magnetic-flux vortex motion in the superconducting state, using a variety of investigative techniques. This research addresses an important feature of high-temperature superconductivity, one that is of both fundamental and practical interest.